Soil Carbon Accumulation Under CO2 Enrichment (FACE)

This research will examine soil carbon dynamics in a free-air carbon dioxide exchange (FACE) experiment. FACE technology provides an enriched carbon dioxide atmosphere by pumping carbon dioxide through vents surrounding experimental plots. This technique avoids confounding effects of increased temperature and reduced ventilation in chamber studies. This study will address the balance between carbon inputs and outputs in forest soil/litter and will compare carbon storage and turnover in soil between experimental and control treatments. %%% Increased carbon dioxide content of the atmosphere is expected to influence ecological processes, but manipulation of atmospheric carbon dioxide for experimental purposes has been hampered by technical limitations. The new FACE technology offers an opportunity to examine effects of carbon dioxide enrichment on ecological processes. Forest soil organic matter represents a major pool of carbon. Carbon dioxide enrichment likely will alter turnover of this pool with potential consequences for further carbon accumulation in the atmosphere. Therefore, this research will substantially improve our understanding of consequences of global change.